High Performance Internet Access for Research and Education in Science an Engineering

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for an OC-3c ATM connection to the Very High Performance Backbone Network Service (vBNS). Applications include: - Molecular Dynamics Simulations - Mechanical and Aerospace Engineering - Marine and Coastal Science - Particle Physics Experiments - Nuclear Physics - Astrophysics Experiments - Distributed Software Development and Research - Visualization - Stanford Linear Accelerator Center Collaborating with: - Arctic Region Supercomputing Center - CERN - Columbia University - Cornell Theory Center - Firmilab - National Center for Supercomputer Applications - Pittsburgh Supercomputer Center - Thomas Jefferson National Accelerator Facility - University of Mainz The award provides partial support of the project for two years.